(SGER) Ground-Penetrating Radar: A Tool for the Next Generation of Outcrop Studies?

9912062
Franseen

Ground-penetrating radar (GPR) is a relatively untested method for outcrop studies that has the potential to: 1) greatly aid in our understanding of the near-surface stratigraphic record, 2) allow direct imaging of three-dimensional geometries and heterogeneities of sedimentary bodies, and 3) provide the ability to predict some petrophysical properties needed for understanding rock properties, stratal architecture, and modeling fluid flow in strata that are important analogs to subsurface aquifers and petroleum reservoirs.
This project combines a team of sedimentologists/stratigraphers, geophysicists, hydrogeologists and petrophysicists, and utilizes new scientific approaches to investigate the controls on GPR attributes and to demonstrate the potential of GPR to the stratigraphic record for outcrop studies. The field site for the project is located in a quarry where limestone and siliciclastic strata of interest for this project will be actively quarried in conjunction with the design of the project. The approaches to be used in this study include detailed outcrop and core studies of stratigraphic and geologic rock properties, rigorous geophysical testing of GPR, including the utilization of new methods recently pioneered by members of the team, collection of petrophysical data on pore geometry and porosity/permeability influences on GPR reflection characteristics, synthetic GPR modeling, and fluid-flow modeling.
The methods and results from this proposed study and future extensions will help advance GPR into the mainstream of geophysical methods utilized in outcrop studies for stratigraphic, sedimentologic, and fluid-flow applications.